Electromagnetic Structure of Hadrons and Hypernuclei

This award will provide support for several experimental research
activities based at Jefferson Laboratory in Newport News, VA. These
include: (1) a measurement of the neutral pion lifetime, which will
provide a quantitative test of predictions of quantum
chromodynamics; (2) tests of so-called parton-hadron duality in
inelastic electron scattering from the proton; (3) electromagnetic
production of strange particles and hypernuclei. These efforts will
involve strong participation by students and postdoctoral
researchers from underrepresented groups.